Dye Laser System for Materials and Combustion Research

The Research Improvement in Minority Institutions (RIMI) program was established to provide support to strengthen the research environments and capabilities of predominantly minority institutions or institutions that have substantial minority student populations. Eligible instiuttuions must also have graduate programs in science or programs in engineering. Funding is provided for faculty research in fields of science and engineering supported by the Foundation and for the acquisition of research instrumentation. New Mexico State University will use RIMI support to acquire a dye laser system for performing materials and combustion research. Combustion research is becoming more and more important as a result of potentially rising fuel costs and environmental issues. Greater understanding of the soot formation process will be sought through the utilization of laser diagnostic techniques for the detection of flames and practical combustion systems. Although all fuels have carbon as the major chemical element, various soot and other carbonaceous materials should have significantly different optical properties because of their different composition. The differential scattering cross section and extinction cross section of homogeneous spherical soot particles will be found by the Mie solutions, using complex refractive index, wavelength, and the particle size parameter. The principal investigator is well trained in optical diagnostics and radiative transfer of flame soot. The Foundation has supported this project because minorities will have greater opportunities to perform meritorius combustion and materials research.